The Playing To Win Network

This proposal calls for development, over five years, of a national, interactive, telecommunications-supported Network of 85 or more affiliated neighborhood technology learning centers in inner cities and other impoverished areas, for the purpose of attracting, and then nurturing underserved peoples' active involvement with math, science, and technology. Network affiliates will provide informal opportunities for disadvantaged minority young people and their families and friends to get access to, and learn to use, the most powerful tool for personal empowerment yet known, to engage in explorations designed to increase awareness of their ability to do math and science and of the potential for careers in these areas, and, through telecommunications, to involve themselves with distant peer groups in collaborative investigations. Such opportunities present attractive and cost-effective alternatives to the dead ends that street life, drugs, incarceration, and/or welfare offer. Success in achieving these goals depends, however, on the availability of continuing programmatic and staff development assistance, and on the ability of Network members to engage, not as disparate entities, but as a mutually supportive community, in this momentous task. Proposed Network services include (in addition to telecommunications linkages) the identification, development, and dissemination of technology-mediated math and science activities appropriate to community education, consultative planning and technical assistance, staff development workshops, the development of a resource database, and an annual all-affiliates meeting -- all these to be accompanied by systematized self-assessment procedures. Also included is the development of a Network infrastructure to support continued existence of the Network beyond the grant period.//